Terrane and Faunal Studies in Southern Alaska

The Alexander terrane, SE Alaska, has the longest and most complete Paleozoic stratigraphy of the Alaskan terranes, with a stratigraphic and fossil record extending from the early Ordovician to the Permian. Many workers believe it began its long history in the western "Protopacific" and only arrived in the vicinity of North America in late Mesozoic time. Some preliminary faunal evidence indicates that the Alexander terrane has been closely associated throughout its Paleozoic history with the continent of North America or possibly with eastern Siberia. Faunas that have been described include Silurian conodonts and brachiopods, Lower, Middle and Upper Devonian conodonts and brachiopods, Mississippian conodonts, and Pennsylvanian conodonts and brachiopods. The faunas described belong to the Old World Realm and show mainly Cordilleran Region and Canadian Arctic affinities. Although several of the faunas that occur in this fossiliferous sequence have been described, other Emsian, Eifelian, Givetian and Mississippian conodont faunas and silicified Middle Devonian and Mississippian brachiopod faunas have been discovered but remain uncollected and undescribed. Other fossiliferous Pennsylvanian deposits were discovered but not collected in 1988. Continued work on these faunas will provide additional evidence concerning the terrane's origin.